Engineering Research Center for Advanced Technology for Large Structural Systems

The Engineering Research Center for Advanced Technology for Large Structural Systems at Lehigh University conducts integrated research and education programs in design, fabrication, construction, and in-service monitoring of structures. Major efforts are focused on design of connections for automated construction, creation of knowledge-based systems for computer integration of construction processes, applicability and efficacy of novel structural materials for initial construction and for structural rehabilitation, and sensing and instrumentation for in-service monitoring of structure condition and performance. A large multi-wall loading facility has been completed and is available for research experimentation. This action is a five year renewal.